Mechanisms of Regulation of Cholesterol Transport in Steroidogenic Cells

The long term goal of this project is the understanding of the hormonal regulation of steroidogenesis. Steroid biosynthesis begins with the transport of the initial substrate, cholesterol, from intracellular stores to the outer mitochondrial membranes. Following this process, the rate limiting step in steroidogenesis occurs, which is transport of cholesterol from the outer to the inner mitochondrial membrane, where its metabolism to steroid hormones starts. This investigator has identified an intrinsic outer mitochondrial membrane protein participating in mitochondrial cholesterol transport. This protein is known as the peripheral- type benzodiazepine receptor (PBR). An investigation of the mechanisms by which PBR regulates cholesterol transport in adrenocortical and testicular Leydig cells is proposed. At first, the hypothesis that PBR regulate the release or migration of the outer mitochondrial membrane steroidogenic pool of cholesterol will be examined using in vitro reconstitution experiments of mitochondrial membranes. Electron microscope studies on the localization of the receptor will be performed. The role of PBR in hormone-stimulated steroid biosynthesis will be investigated. Phosphorylation of PBR, identification of the protein kinase responsible for this, and its correlation with the function of PBR will be examined. This research is based on a novel finding that a receptor for certain neurotransmitter antagonists that had been known for their effects on the nervous system is also found on the outer membranes of mitochondria. Preliminary results suggest that this receptor is involved in regulating a key step in the regulation of steroid hormone biogenesis. The results of this research should elucidate the role of this receptor in the physiologically important process of steroid hormone production.